Free Burnside Groups and Related Topics

Abstract for award DMS-0400746 of Ivanov:

The main theme of this project is further applications and
development of the geometric machinery of graded diagrams created
by the principal investigator (PI) to solve one of the most
celebrated algebraic problems of the 20th century, the Burnside
problem for periodic groups. In particular, the PI will work on a
modification of this machinery suitable for free products of
groups, will investigate finite, locally finite, free, normal
subgroups of free Burnside groups of large exponent and study
Burnside extensions of groups given by defining relations. In
addition, the PI will work on a generalized version of the Hanna
Neumann conjecture on subgroups of free groups, on the Whitehead
asphericity conjecture for aspherical and almost aspherical
presentations of groups, and on strengthening of the classical
embedding theorems for groups discovered by Higman, B. Neumann and
H. Neumann in the 1940's. The PI will also continue to study
algorithmic problems of 3-dimensional topology, in particular,
computational complexity of the recognition problem for the
3-sphere. The proposed activity should result in a more profound
understanding of such fundamental objects of modern algebra as
periodic groups and, more generally, groups defined by generators
and relations.

This research project is in the area of the theory of groups that
investigates groups, defined by means of generators and defining
relations, and lies at the intersection of the theory of groups
with low-dimensional topology, geometry and mathematical logic.
The theory of groups is a mathematical theory of symmetries of
spaces which interacts with many other disciplines, for example,
physics and chemistry outside of mathematics, coding theory,
number theory, topology and geometry inside mathematics.